Families Exploring Science Together

9901961
JOHNSON

The New Jersey Academy of Natural Sciences, The Franklin Institute Science Museum, the New Jersey State Aquarium, and the Philadelphia Zoo request $957,158. The consortium of Philadelphia area science museums jointly with community-based organizations will design and implement a science experience that will stimulate, encourage, and enrich families' interest, learning, and involvement in science.

The collaborative known as Families Exploring Science Together (FEST) will offer multi-level programming ranging from introductory museum experiences to in-depth science inquiry activities for families that are associated with community-based organizations that serve African-American, Latino, and Asian communities. The target audience will be families from 8-12 culturally diverse neighborhoods in the Philadelphia-Camden region.